SBIR Phase I: Microfabrication through Cross-Sectional Lithography

9961204
Bukkosy

This Small Business Innovation Research (SBIR) Phase I project will explore the feasibility of a low-cost, microfabrication system known as micro cross-sectional lithography. The system would be capable of creating high aspect ratio, three dimensional micromechanical devices for Micro-Electro-Mechanical Systems (MEMS) applications with a one-micron resolution from photopolymer resins, typically using UV energy. Phase I will include fabrication of a demonstration unit with 5-micron resolution, design of a one-micron resolution lens for feasibility analysis, and materials evaluation for microscale properties.

The experimental design suggests increased resolution, increased flexibility in manufacturing, reduced cost, and reduced fabrication times compared to current lithographic means. Use of such a device enhances the capability of designers and researchers by allowing cost-effective prototypes to be built at the microscale level. This innovative process will greatly enhance the ability to package microsensors and improve on parts designs through the prototyping process.